Partial Travel Support for Eastern Europe Participation in the Symposium on "Polyelectrolytes" at the Spring Meeting of the ACS; Denver, CO; March 28-April 1, 1993

This grant provides partial support for the attendance of about twelve polymer scientists from the former Soviet Bloc at the symposium on Polyelectrolytes, which will be held in Denver, from 28 March - 1 April 1993. The symposium will provide a unique international forum for the discussion of this important scientific subject.